Development of Efficient Algorithms for Computational Electromagnetism and Computerized Tomography

Kunyansky
The first part of this project consists in developing fast,
high-order accurate algorithms for solving eigenvalue and
boundary value problems for certain elliptic partial differential
equations that describe electromagnetic wave scattering by
surfaces of objects and wave propagation in photonic crystals.
This work grows from a set of highly efficient numerical
techniques recently proposed by the author (in collaboration with
O. Bruno, Caltech) for problems of acoustic scattering. Those
methods, which permit computing of scattering fields from
hundred-wavelength-sized objects, with relative accuracies in the
range from 0.0001 to 0.000001, are not directly applicable to the
problems of the current project, due to a different structure of
hypersingular kernels in the scattering equations and a different
mathematical nature of the eigenproblems of photonics. However,
further development of this very promising general approach
promises new computational methods of the same unprecedented
accuracy and efficiency. The second part of the project is
devoted to the design of analytic (theoretically exact)
algorithms and search for new analytic inversion formulas for
Single Photon Emission Computed Tomography (SPECT). In
particular, explicit inversion formulas recently discovered by
the author are used to develop an efficient algorithm for 3-D
SPECT reconstruction from parallel beam measurements made from
non-planar directions. Also, an analytic solution is sought to a
practically important problem of 2-D SPECT reconstruction from a
reduced (collected in the 180 degree angular range) set of
measurements.
The need for efficient computational methods arises in
several broad areas of application. For example, non-invasive
testing, remote sensing and, most importantly, radar and radar
evasion technologies require very accurate solution of surface
scattering problems. The investigator develops new, fast, very
accurate methods for computing solutions of such problems. The
new computational techniques find applications in the theory and
design of photonic bandgap structures (photonic crystals) --
artificial man-made materials that are anticipated to become a
main building block of devices for the next generation of optical
communication networks, and for optical and quantum computing
technologies of tomorrow. Finally, the novel analytic methods and
algorithms of SPECT that result from this project are important
for the theory and practice of functional medical tomography,
studying abnormalities of blood flow in patients.